A Unified Classical/Modern Approach for Undergraduate Control Education

This project uses a five-day short course to present faculty members with an integrated methodology for teaching undergraduate control theory applicable to a wide range of mechanical, electrical, thermal, and fluid systems. The program combines the insight and understanding of classical control (frequency domain) theory with the computational power of modern control (time domain) theory. Often, the tools of these two domains are taught in separate sections of a course, or in separate courses. This need not be the case. Frequency domain analysis provides excellent insight into system stability, performance and robustness. Time domain methods are best suited for computer applications. Having exposure to both time and frequency domains, students may learn how to freely move between them. Such a capability provides students with both an excellent intuitive understanding of control theory, as well as the ability to exploit computational tools. Participants will leave the course with a powerful set of resources (bound lecture notes, software, syllabi, and worked problems) that are easy to use. Contact will be maintained with participants after the conclusion of the short course; a meeting of the participants will be organized at a technical conference to share lessons learned and to evaluate the effectiveness of integrating the short course concepts into their curricula.